CAREER: Towards Theoretical and Algorithmic Foundations of Diffusion Models

Diffusion models have recently emerged as a powerful framework for generative artificial intelligence (AI), with growing impact in language modeling, scientific computing, and signal processing. Despite their remarkable capability to generate complex, high-dimensional data, existing AI or diffusion models often require substantial computational and data resources, and their empirical success is not fully understood from a rigorous theoretical perspective. Motivated by this gap, this project aims to develop the mathematical and algorithmic foundations needed to make diffusion models more efficient, trustworthy, and broadly applicable. By establishing principled theory for their statistical and computational behavior, the project will guide the design of efficient diffusion-based methodologies that can be reliably deployed in practical scientific and engineering settings. In addition, the project will support educational advancement through student training, curriculum integration, and outreach activities in data science and AI research.

This project consists of three interconnected research thrusts. The first thrust focuses on improving the computational efficiency of diffusion models by designing provably accelerated sampling procedures that achieve faster convergence without sacrificing sample quality. Complementing this computational perspective, the second thrust aims to strengthen the statistical foundation of diffusion models by establishing end-to-end statistical guarantees for sample generation and characterizing fundamental performance limits. The third thrust introduces low-complexity, theoretically grounded diffusion-based methods for inverse problems by integrating learned diffusion priors with iterative optimization algorithms. Together, the project will provide new computational and statistical insights for generative modeling practitioners and support the development of scalable, robust methodologies across a wide array of domains.